Conference on Nonlinear Partial Differential Equations and Applications

Proposal: DMS-0410791
PI: Felix E Browder
Institution: Rutgers University
Title: Conference on Nonlinear Partial Differential Equations and Applications

ABSTRACT

An international "Conference on Nonlinear Partial Differential Equations and Applications" will be held in Paris, France, June 21-25, 2004, in honor of Professor Haim Brezis. The program emphasizes the interplay between theory and applications of nonlinear PDEs. Areas of application covered at the conference include materials science, combustion, relativity and gravitational waves, and fluid mechanics. A distinguished group of speakers has accepted the invitation to speak at the conference. The conference organizers expect between 200 and 300 participants. The program includes invited talks, short presentations by selected young researchers, poster sessions, and a round-table discussion. Four speakers have been asked to give short tutorial courses prior to the conference. Details are to be found on the conference's web site, http://mule.ann.jussieu.fr/HB2004/index.html.